XPS: FULL: DSD: Collaborative Research: Parallelizing and Accelerating Metagenomic Applications

The importance of metagenomics arises from the fact that over 99% of
the species yet to be discovered are resistant to cultivation. Unlike
single genome sequencing, assembly of a metagenome is intractable and
is in large part, an unsolved mystery. Moreover, the advent of high
throughput sequencing is fueling rapid generation of enormous
metagenomic datasets. There is no available sequenced genome for a
majority of the species. There is a need to determine the number of species in
a metagenomic dataset as well as the abundance of each of these
species. The key steps (Assembly and Clustering) in the metagenomics
analysis algorithms are compute-intensive, while the sheer amount of
data the algorithms operate on is staggering. The most promising way
to tackle the computational challenges is to build special purpose
hardware, dedicated solely to suitable algorithms.

The main objective of this project is to develop a range of flexible,
affordable, parallel, fast hardware-accelerated bioinformatics
solutions, using GPGPU, FPGA, and ASIC, for metagenomic analytics to provide an alternative to
expensive computer clusters. Specifically, hardware solutions for
metagenomic clustering and assembly will be developed. Several
acceleration methodologies, including parallel software mapping and
special hardware design, are proposed to explore the parallelism
inside the applications and to improve the data access bandwidth in
the hardware running bioinformatics applications. The ideas proposed
in this work will be evaluated in a multi-pronged manner using a
combination of simulation, emulation and prototyping efforts. Further,
the PIs will use a combination of commercial tools, collaborator
resources and existing internal tools. The research will be
conducted in collaboration with industrial partners. Through close
collaboration with several industry partners, direct transfer of many
ideas to industry is enabled. The outcome of this research will,
therefore, have a direct impact on future bioinformatics application
solutions. This project will involve graduate and undergraduate
students in all aspects of the research. The PIs will actively
integrate the research results from this project into the graduate and
undergraduate curricula, and develop new interdisciplinary courses on
bioinformatics and computer architecture to train the next generation
work-force. Finally, the tools and techniques developed in this
research will be made available through web-sites for use by other
educators, researchers, and industry practitioners.